Mathematical Sciences: On the Construction of Einstein Metrics and Related Projects

9404657 Kapouleas The research covers topics related to the construction of Einstein metrics using perturbation techniques. Included is the geometric study of classes of Ricci-flat complete manifolds of 4- dimensions. Solutions to the hyperbolic Einstein's equation will also be investigated. The research has potential applications to general relativity theory in theoretical physics. ***